AMC-SS: 3D Stochastic Equations of Fluid Dynamics and Wiener Chaos

The PDEs known as the Euler and Navier-Stokes equations are the most important
deterministic models for the motion of fluids and gases. It has long been
suspected that stochastic versions of Navier-Stokes or Euler equations could
be valuable models for turbulent motion. The research to be performed is
concerned with developing methods for specifying stochastic versions of
equations of fluid dynamics related to turbulence, investigating their
properties, and constructing numerical approximations and asymptotics.

Turbulence is prominent in numerous contexts of significance for science and
technology, including oceanography, climatology, flight dynamics, navigation,
combustion and propulsion, etc. The proposed research deals with mathematical
models of turbulence that capture its essential behavior, and also yield
computationally tractable representations. Related numerical algorithms will
be developed, coded, and tested.